Research on Designing Practical Algorithms for Computing and Image Processing

A fundamental problem in parallel computing is to design high-level, architecture independent, algorithms that execute efficiently on general purpose parallel machines. The purpose of this project is to advance our understanding of the main factors required for designing practical parallel algorithms and to develop techniques and data sets for experimentally validating the results. As a byproduct, portable parallel programs and data sets for a number of specific important problems arising in combinatorial computing and image processing will be developed and made available to other researchers through the PI's Web page. There are currently two factors that make this fundamental problem more tractable. The first is the convergence of parallel architectures toward a unifying model and the second is the emergence of standards such as the message passing standard MPI. The technical approach to be followed is based on (1) a simple computation model that incorporates communication costs into the complexity of the algorithms, and (2) a SPMD programming model that makes effective use of communication primitives. ***